Introduction of Inductively Coupled Plasma Technology to a Community College Water Quality Monitoring Program

SUNY Ulster County Community College will purchase an inductively coupled plasma spectrometer and automatic sample changer. This equipment will be used to improve instruction in the water quality monitoring program at SUNY Ulster. Students who are training to become water quality monitoring technicians will be introduced to the type of instrumentation that now is used by commercial and governmental laboratories to monitor for trace pollutants in water supplies. SUNY Ulster County Community will match the NSF grant with an equal amount of funds.